MRI: Acquisition of a Low-Field NMR for Research/Education at Texas A&M International University

CBET-0820919
Ni

This proposal requests funding for a BRUKER low-field proton 7.5 MHz bench-top NMR
system for research and teaching. The main components of this 7.5 MHz TD-NMR Analyzer
with gradient capability are listed as following.
1. mg-YS-R/GX: mg7.5, 7.5 TD-NMR Analyzer
2. mg-HPC: Host personal computer
3. mg-PGU4: One dimensional Unipolar Gradient Amplifier
4. mg-ExpSpel: Developers' Software Option (operating NMR sequence program,
controlling data, etc.)
One of the objectives of the proposed research is to develop a non-destructive and noninvasive
technique to assess bone quality by quantifying the distribution of water (bound and mobile
water) within bone tissue, porosity, and pore size distributions in cortical bone in vitro. In
addition, the acquired instrumentation will provide other faculty with the necessary tool(s) to
pursue aspects of their research that are presently not available on the TAMIU campus.